Workshop on Paul A.M. Dirac Papers to be held in Tallahassee, FL, June 12-13, 1998

This is a proposal for a workshop to examine the papers of Paul A.M. Dirac, one of the principal physicists of the 20th century, and to develop a strategy for archiving those papers in a way that best serves the needs of the research community. The workshop will be held in Tallahassee, FL, on June 12 and 13, 1998.